CIF: Medium: Collaborative Research: Toward a General Theory of Information Transfer via Timing

Information theory, communication theory, and statistical signal
processing have proven spectacularly successful as innovation engines
for communication, data compression, and information processing
technologies. Although in principle these theories are quite general,
in practice they are most useful for a particular family of models,
such as discrete Markov sources and channels with additive
Gaussian noise. Although this family is quite rich and encompasses
many practical technologies, there are several important scenarios that
fall outside of these models. In particular, the timing of discrete events is
the modality of interest in many applications, such as neuroscience
and certain problems in network security, and this modality does
not fit neatly into the standard classes. This research involves
extending information theory, communication theory, and statistical signal
processing to develop a general theory of information transfer via timing.

The first phase of this research involves solving several concrete
problems involving information transfer via timing, such as the
secrecy capacity of timing channels and how to minimize information
transfer via timing side channels in both wireless and wireline
networks. The second phase involves interconnecting these disparate
problems to form a general theory of information transfer via timing.
By elevating the role of timing in information transfer,
this research better positions the fields of information theory,
communication theory, and statistical signal processing to
impact allied fields such as networking, neuroscience, and
operations research, where timing and delay are of fundamental
importance. This impact is facilitated through special topics
courses and invited sessions at conferences, both of which are
designed to attract participants from a range of areas.